XPS: EXPL: FP: Collaborative Research: SPANDAN: Scalable Parallel Algorithms for Network Dynamics Analysis

The goal of SPANDAN project is to create a novel architecture-independent framework
for designing efficient, portable and scalable parallel algorithms for analyzing
large-scale dynamic networks. SPANDAN will not only provide an intuitive methodology
for efficiently translating sequential algorithms into scalable parallel algorithms
for dynamic networks, but also provide mechanisms for their analytical evaluation and
serve as a mediatory layer between applications and system level tuning. To evaluate
the effectiveness of SPANDAN framework in real-world applications, the PIs will
collaborate with social scientists and biologists. They will also integrate research
findings into various courses such as network analysis, parallel algorithms, and
bioinformatics. They will further collaborate with high schools to develop summer courses
with the goal of encouraging women and minority students to pursue IT-related careers.

As the underlying methodology, the SPANDAN framework will exploit graph sparsification
techniques to divide the network into sparse subgraphs (certificates) that form the
leaves of a sparsification tree. This innovative approach will lead to the design and
analysis of efficient parallel algorithms for updating dynamic networks, and reduction
of memory latency associated with parallelizing unstructured data. Specifically parallel
algorithms will be designed for maintaining network topological characteristics, and
updating influential vertices and communities. To demonstrate portability and performance,
the developed algorithms will be implemented on the distributed memory clusters, shared
memory multicores, and massively multithreaded CRAY-XMT.

For further information see the project web site at:
http://cs.mst.edu/labs/crewman/projects/SPANDAN/